Oceanographic Technical Services, 2009 - 2011, R/V Thompson and R/V Barnes

University of Washington proposes to support technical services on R/V Thompson, a 274’ general purpose research vessel, and R/V Barnes, a 66-foot coastal research vessel, both operated as part of the University-National Oceanographic Laboratory System research fleet. The proposal requests support for basic services. They will provide two shipboard technicians on each cruise of R/V Thompson to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation. As part of the basic services, they will maintain and operate the multibeam sonar systems on R/V Thompson. For R/V Barnes, a technician is available to sail if desired by the chief scientists, though (s)he will often not sail due to space limitations; the technician will provide shared-use instrumentation for use by the scientists, and provide remote support as needed if a technician does not sail. The budget included with this proposal is for the first year of a 3-year continuing grant.